FSML: Addition of a medium-sized conference room to the University of Wisconsin Trout Lake Station

The University of Wisconsin Trout Lake Station is awarded a grant to add a new conference room facility onto the existing main laboratory building. The 1500 square-foot wing will contain a 1050 sq. ft. multipurpose assembly room, restroom facilities, a kitchenette, and a multiple use basement. The assembly room will have a rated capacity of 70 people (chairs and tables) or 150 people (chairs only). This addition will allow the Trout Lake Station to host meetings, workshops, outreach events, and classes. Researchers at Trout Lake have been leaders in various regional, national, and international research groups including GLEON, NEON, and LTER. The new facility at Trout Lake will benefit these programs by providing adequate on site meeting space. The new addition will similarly enhance the Station's ability to conduct outreach activities for K-12 and the general public.

The Trout Lake Station benefits science and society by 1) creating new knowledge, including policy-relevant research such as that on long-term dynamics of lakes, impacts and removal of aquatic invasive species, and human-lake interactions, 2) providing opportunity and training for students, including more than 100 undergraduates spending significant time at the station (e.g., publication of 21 graduate student theses, and direct contact with more than 1250 elementary school students - including more than 200 Native Americans - since 2004) and 3) providing outreach to the general public, including community participation in developing scenarios of the future of the Northern Highland Lake District, presentations to community groups, and a strong presence in the local, state, and national print, radio, and television media. The addition of this new facility will allow the Station to continue to serve as a national and international resource for research and outreach on aquatic resources and their interactions with terrestrial systems and society.